Dynamics Days 2004

Abstract
0406581
Earl Dowell (Duke Univ.)

This project supports the annual International Conference on Chaos and Nonlinear Dynamics: Dynamics Dates 2004 to be held in Chapel Hill, NC, on January 2-5, 2004. The conference have been an important and productive activity to advance the growth of dynamic systems and control.

This year's program will bring selected undergraduates into this conference, thus providing an lead-in to such young students in this vast, challenging engineering field.